International Research Fellow Awards: A Screen for Genes Involved in Leg Development in Drosophila

9901543
Banka
The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twenty-four months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad.
This award will provide Dr. Wendy L. Banka with support for twelve months to work with Dr. Stephen Cohen at the European Molecular Biology Laboratory (EMBL) in Heidelberg, Germany.
Dr. Banka's goal is to understand the molecular basis of pattern formation in the Drosophila leg. She will identify the genes involved in leg development by combining a systematic gain of function screen with a suppressor screen and to characterize their role in development of the leg.
Dr. Cohen's lab is well-equipped for this research, having considered a wide range of patterning questions for many years using both standard genetic and molecular biological techniques. Its location at EMBL will provide Dr. Banka with exposure to numerous projects and researchers as it is an international institute supported by 14 European countries and Israel.
***